Sequential Displacement Method for Multi-Story In-Plane Reinforced Hollow Unit Masonry Walls Under Simulated SeismicExcitations

This research project will conduct integrated experimental and analytical studies on simple components, main subassemblages, and finally a complete multistory masonry building (Masonry Research Building). These studies will be conducted using small, medium, and full scale specimens. The objective of the studies is the development of a reliable methodology for investigating the in-plane behavior of multistory reinforced hollow unit masonry wall elements when a building is subjected to earthquake ground motions. Emphasis will be given to the development of the experimental methodology which will be used as a basis for studying the earthquake behavior of the full scale Masonry Research Building. Results from the two and three story in-plane wall tests will be used to verify the analytical models developed by others.